Parallel Programming on Workstation Clusters

This project impacts upon how parallel programming is taught using workstation clusters, the most common computing platform for undergraduate institutions. It utilizes the recent introduction of inexpensive multiprocessor workstations and clusters of such multiprocessor systems. Conventionally, parallel programming on workstation clusters has been done using the message-passing paradigm. However, the message-passing paradigm has serious disadvantages from a programming perspective, including requiring message passing to be specified explicitly in the program, and having to take into account very significant communication delays. It is widely accepted that a preferred programming paradigm is the shared memory paradigm. This is especially so for undergraduate students who have already been taught and understand sequential programming.

This project explores the use of shared memory programming on workstation clusters, concentrating upon thread-based parallel programming. New educational materials for undergraduate teaching, including necessary software tools for distributed shared memory, are being developed to support this approach. This work is intended to make a change from purely message passing programming on workstation clusters to shared memory and hybrid shared memory/message-passing programming.

In addition to developing new courses for the local students, the courses are being offered on the NC-REN, a teleclass network for several North Carolina universities. Another test site for the course will be a local historically black university. A professor from that university will be involved in course development and training to enable him to teach and assess the course at his own institution.

If the proof-of-concept of this approach is successful, teaching materials will be published in a textbook and made available through a web site.